III-COR: Discovering and Organizing Hidden-Web Sources

IIS - 0713637
Freire, Juliana
University of Utah
III-COR Discovering and Organizing Hidden-Web Sources

The Web is estimated to contain millions of online databases. As the number of online databases grows, there has been an increased need for techniques and tools that allow users and applications to leverage the high-quality information that is hidden behind their Web form interfaces. This project will address the problem of discovering and organizing hidden-Web data sources, a necessary step to large-scale retrieval and integration of Web information. Scalability of novel techniques over very large volumes of data will be explored. New machine learning techniques will be applied to the problem of locating and organizing Web site fronts to databases and the overall strategy of locating and organizing web forms that serve as user interfaces to databases. These would then be clustered to discover domains
(categories) of databases the domains would be used to organize the collected forms into a searchable collection. That collection will allow users with particular interests to located databases that serve their needs.